Collaborative Research: A Comprehensive Methodology for Early Power-Performance Estimation of Nano-CMOS Digital Systems

Collaborative Proposal ID(s): 0702361, 0702744
PI names: Saraju Mohanty, Rabi Mahapatra
Title: A Comprehensive Methodology for Early Power-Performance Estimation of Nano-CMOS Digital Systems
PI Institutions: University of North Texas, Texas A&M University (TAMU).

ABSTRACT:
The primary goal of this project is to facilitate the estimation of power and performance of digital systems described in MATLAB/Simulink when they are constructed using nanoscale CMOS technology. The research will result in the development of new building blocks (i.e. a new MATLAB toolbox, called Power Box,) which are fully parameterized for power and performance. The proposed research involves the design and development of theory, algorithms, software implementations, and experiments, with sufficient scope for education and training of undergraduate and graduate students in VLSI design and system modeling. The research results will be widely available through PIs' publications. This project can effectively serve the large, complex, digital system simulation community of researchers, in both academia and industry to boost further research and to reduce design cycle time. This collaborative research will be performed by researchers at the University of North Texas (UNT) and the Texas A&M University (TAMU).